Analysis of Toeplitz Operators

PI: Dechao Zheng
Proposal Number: 0200607

ABSTRACT

Research will be conducted on problems arising from
the interaction between function theory and functional
analysis. Primary emphasis will rest on the study of Toeplitz
operators on some function spaces. The topics to be considered
include compact operators ``closely associated with function
theory'' on the Hardy space or the Bergman space, bounded
Toeplitz operators, algebraic and spectral properties of
dual Toeplitz operators, Hankel and Toeplitz operators on
the Segal-Bargmann spaces and quasi-invariant subspaces of
the Segal-Bargmann spaces. This project focuses on the
central problem of establishing the relationship between the
fundamental properties of those operators and analytic and
geometric properties of their symbols.

The proposed work involves ideas and problems from
operator theory and complex analysis. Operator Theory
grew out of ideas used to study certain partial differential
equations arising in physics, and became increasingly
important with the advent of Quantum Mechanics. There are
at least two reasons for the continuous and increasing
interest in Toeplitz operators. In addition to differential
operators, Toeplitz operators constitute
one of the most important classes of non-selfadjoint operators
and they are a fascinating example of the fruitful interplay
between such topics as operator theory, function theory,
harmonic analysis and operator algebras. On the other hand,
Toeplitz operators are of importance in connection with a
variety of problems in physics, probability theory,
information and control theory, and several other fields.